Wave Turbulence and Mixing

This collaborative effort addresses two closure problems arising
in fluid systems: the description of turbulent energy transfer
through a large number of wave modes, and the determination of the
amount of mixing at internal breaking waves in a stratified
environment. The methodology proposed includes the asymptotic
reduction of complex partial differential equations to simpler
systems, the numerical simulation of dynamic equations, the
critical analysis of physical principles, and the comparison of
theory and computations with physical laboratory experiments. We
anticipate that the work will yield both physical insights and
interesting new mathematics.

Turbulent energy transfer, dissipation and mixing are key
processes in fluid dynamical problems ranging from the wind
generation of water waves to climate dynamics. Ocean mixing ultimately
determines the sea--surface temperature, which, in turn, affects
atmospheric winds, temperature and humidity. Mixing by upward propagating
breaking waves is known to play a significant role in the exchange of
momentum between the lower and the upper layers of the atmosphere. In the
ocean, turbulent wave action is responsible for the transfer of energy from
the very large scales of storms to the small scales at which
dissipation takes place. It is expected that the research proposed
here will contribute to the understanding of fundamental physical
mechanisms behind these important phenomena, and hence improve
our capability to predict and quantify climate changes.
This proposal will also have a strong educational impact, through
the training of graduate students, the development of a research seminar
for undergraduate students, the teaching of challenging undergraduate classes,
and by having undergraduate students participate in summer projects focused on
the research.